Development of an Ion Microprobe Facility

This award will support the initial phase of development of the ion microprobe facility at the University of California-Los Angeles. During the two-year period of this award a new high- transmission, high-mass resolution secondary ion microprobe instrument is to be delivered and commissioned in the Department of Earth and Space Sciences at UCLA. The purchase of the instrument was supported by funds from UCLA, the William Keck Foundation, and the National Science Foundation. The facility will be the first of its kind in the U.S. and will be operated as a national facility available to researchers in geochemistry. The new ion microprobe will have the capability to analyze very small regions of minerals (on the order of ten micrometers) for precise isotopic ratios and will be of particular usefulness in geochronology and geochemical tracer studies.